Exploring Space Science

9901923
RANKIN

Soundprint Media Center is producing a series of 13 public radio documentaries entitled Exploring Space Science. The series will target a range of audiences: public radio listeners; listeners to radio reading services; visitors to planetariums, public libraries, and museums; teachers seeking additional information for core science subjects; and the parents and students who visit space science education centers. The programs will survey scientific inquiry into and from space. The series will include the architectures of the universe, the origins of the planets, global climate and atmospheric changes, and microgravity's effect on the human biomedical systems. A range of science will be covered including astrophysics, astronomy, planetary science, space policy, climatology and earth science, biomedical science, and the history of science.